Looking at Students' Interactions with Materials and Phenomena: A Collection of Video and Print Resources for Teachers

9355612 Zubrowski This EDC project develops and conducts a pilot test of a collection of video and print materials for teacher enhancement to support teacher understanding and use of concrete materials and phenomena in middle school science education. The materials focus on developing teachers' skills in observing and supporting "hands-on" investigation and exploration. The videos provide documentary footage of the many ways in which students interact with a range of materials common in middle school physical science. Print resources provide a surround for the videos. The project emphasizes research and evaluation to identify how the design and content of the materials can maximize the impact on teachers' understanding and practice, and the use of the materials by instructors in different settings. The project also explores strategies for distribution. Following the pilot it is anticipated that a full set of materials will be produced and distributed. ***